REG: Adhesion Tester

Matching funds are provided to support purchase of an adhesion tester. The equipment will be used in a study of the properties of the adhesion of CVD silicon dioxide films to polyimide composites. The films are being developed for elevated oxidation protection. The adhesion results will be compared with process parameters and substrate microstructure.